CEDAR: Imaging Science Component of the MISETA Program

The goal of the MISETA (Multi-Instrumented Studies of Equatorial Thermosphere Aeronomy) initiative is to improve understanding of equatorial thermosphere aeronomy through studies that combine continuous measurements from a variety of automatically operating instruments. This project will cover the Imaging Science Component of the MISETA program. Boston University will construct a copy of its CEDAR Class-I imager and operate it at Arequipa. Results from the imager will be analyzed in coordination with other MISETA PI's to insure maximum science yield from the topics listed above.